Interference Effects in Conductors and Superconductors

9970999
Spivak
This grant supports theoretical research in condensed matter theory. The focus of the research is to enhance our current understanding of interference phenomena in metals and superconductors. Systems to be studied include adiabatic charge transport in mesoscopic metals; mesoscopic effects in superconductors and superconductor-normal metal junctions; and, mesoscopic effects in ferromagnet-nonferromagnet metal junctions.
%%%
This grant supports theoretical research in condensed matter theory. The focus of the research is to enhance our current understanding of interference phenomena in metals and superconductors. These materials and junctions formed from them display a range of novel phenomena on the mesoscale - between the atomic and large scales. These phenomena are of interest for fundamental reasons and yet have potential applications in devices.
***